Biochemistry of the Anaerobic Dehalogenation of Chlorinated Aromatics

Ragsdale

The EPA list of the twenty most hazardous compounds includes ten halogenated organic compounds. Anaerobic organisms are likely to be very important in the natural biodegradation of such compounds and show promise for bioremediation of sites contaminated with halogenated compounds. There have been studies of consortia that can metabolize polychlorinated biphenyls (PCBs), pesticides, and herbicides. Members of the recently discovered Desulfitobacterium or Desulfomonile class can rapidly and efficiently remove the halogen group of alkyl halides and aryl halides in an energy yielding process called dehalorespiration. This is a reductive dehalogenation in which an electron donor (pyruvate, H2, etc.) reduces the alkyl or aryl halide through an electron transfer chain, effectively replacing the chloride with a hydride equivalent. This is an early stage in research on such organisms and the relevant enzymes. This project is aimed at better understanding the process of reductive dehalogenation of dehalogenated aromatics. So far several dehalorespiring organisms have been isolated. Two aryl chloride dehalogenases have been purified and the gene encoding one of these has been cloned. There have been few mechanistic studies of such enzymes. The research outlined here will provide new information about this relatively new class of enzymatic reactions. The genes encoding the dehalogenase(s) will be cloned, sequenced and overexpressed. The dehalogenase(s) will be characterized and the reductive dehalogenation mechanism(s) will be elucidated. The enzymes appear to contain either heme or vitamin B12. This represents a new role for these metal centers, which will be elucidated. Spectroscopic and electrochemical studies will be performed to identify and determine the roles of these prosthetic groups in the dehalogenation process. There could be significant biotechnological impact of these studies. The organisms or enzymes from these organisms could be used in bioremediation processes. Research described here aims to determine which organisms and which enzymes from these organisms show the most potential for bioremediating sites contaminated with PCBs and for use in plant biotechnology. The activities of the organisms and purified enzymes will be assessed for their ability to dehalogenate at the ortho, meta, and para positions of the aromatic ring and to reductively dehalogenate xenobiotics like Aroclor and herbicides like dicamba and 2,4-D.